Travel Support for Young Researchers to Attend an International Summer Scientific School on High Speed Hydrodynamics to be held in Chebaksary, Russia, In June 2002.

Travel support for young researchers to attend an International Summer Scientific Schopol of High Speed Hydrodynamics to be held in Chebaksary, Russia.